Acquisition of a New 3 MV Accelerator Mass Spectrometer

9413337 Donahue This award provides partial funding for the upgrade of a 2-megavolt tandem particle accelerator operated at the University of Arizona as part of the NSF-Arizona AMS Facility (Accelerator-based Mass Spectrometry). The accelerator is operated as a multi-user facility for 14C age dating of a wide variety of natural samples and artifacts. Science applications range from global change to archeological. The upgrade will consist of the addition of a high-energy analyzing magnet system, accelerator terminal insulating supports, a high frequency pulser, and an injection system electrostatic analyzer. The upgrade is aimed specifically at decreasing the turn-around time for analyses by increasing the throughput capabilities of the accelerator and decreasing the chances of machine down-time. ***